Molecules Exhibiting Novel Electron Delocalization (Chemistry)

This grant in the Organic and Macromolecular Chemistry Program is directed towards the development of new synthetic organic methods, which will permit the preparation of new materials of theoretical interest. The properties of these materials will have practical application. This project is concerned with a study of the synthesis and properties of novel organometallic systems. Of particular interest are the diruthenium complexes of polycyclic aromatic compounds. These complexes have the potential for behaving as completely-delocalized, Class III mixed-valence ions. Such ions can be expected to show unusual electrical and/or magnetic properties. Electrochemical studies of iron complexes of ı2.2!indenophanes will be made to try to ascertain the extent of electron delocalization in these complexes.